Field Collapse of Soils Due to Wetting

The objective of this work is: (1) to identify the most suitable method of sampling and of sample preparation for collapsible soils found throughout the Southwest U.S.; and (2) to develop and test a relatively simple procedure (modified Jennings & Knight odometer test) for determining the extent of wetting of soils in the field.